Investigations into the Interaction of Metal Atoms with Hydrogen: Infrared Spectra of Novel Metal Hydride Species in Solid Hydrogen

In this award, supported by the Experimental Physical Chemistry Program of the Chemistry Division, Prof. Lester Andrews of the University of Virginia will conduct research to study the infrared absorption spectroscopy of exotic species prepared in a reactive, solid hydrogen matrix. The experiments will be supplemented with quantum chemical calculations.

Besides the applications of the present work towards developing a deeper understanding of some interesting metal hydride systems, the work will provide basic information that will be useful for the further development of hydrogen storage materials and will provide a better understanding of the reactions of the actinides. Prof. Andrews will continue to mentor graduate and postdoctoral researchers, many of whom have gone on to serve at national laboratories, as well as continuing his many active collaborations - both domestic and abroad.